Statistics/Mathemematics TEAMS Conference

The project is an inaugural conference on statistics in teacher preparation by The American Statistical Association (ASA), with additional sponsorship and organizational support from The University of Georgia's Department of Statistics, College of Arts and Sciences, and the Department of Mathematical Education, College of Education is developing the conference. The dates of the conference are October 30 - November 1, 2003. A major goal is to create awareness among teacher-educators of necessary preparation for K-12 teachers to give instruction in probability and statistics. Another goal of the conference is to build a leadership team that can periodically meet to examine issues and provide guidance in methods to improve teacher preparation.